CAREER: Coordinated Control from Deformable Virtual Structures with Dynamic Communication

The use of multiple vehicles for the achievement of a joint task
produces an operational setting with greater flexibility, robustness
and coverage for a lower cost than is possible with single vehicles or
stationary sensing networks. When the operational environment for
such vehicles is complex, dynamic or contains operational hazards,
individual vehicles must have the ability to respond quickly and with
a high level of maneuverability. The focus of the work in this
project is the development and implementation of control theoretic
methods for coordination of groups of agile vehicles coupled through
communication and operating in dynamic environments. The need for
development of these methods arises when traditional design
methodologies fail due to the operation of autonomous systems in the
presence of a strong coupling between dynamic information flow and
underlying system dynamics. The work will be primarily driven by
challenges arising in the coordinated control of agile underwater
vehicles, however, the results will also have high impact for tasks
such as vision-based reconnaissance with aircraft in hazardous urban
environments.

The particular combination of agility, dynamic communication and
operational uncertainty requires that the communication and
coordination elements of coordinated control be considered jointly
rather than independently. The objectives of this project are (1)
develop a deformable virtual structures approach to cooperative
control which simultaneously captures the constraints imposed by
limited communication and by vehicle constraints, and (2) develop
dynamic communication structures that are sufficient to guarantee
stability and coherence of the virtual structure. The group of
vehicles is treated as a virtual, deformable body which is effectively
underactuated due to velocity and motion constraints on the
constituent vehicles and the physical constraints necessary to
maintain communication between the vehicles. The constituent vehicles
then become shape actuators for the evolution and motion planning for
this new class of virtual mechanical systems with lumped, dynamic mass
properties. The communication structure of the vehicles is assumed to
be dynamic with the transmission connections treated as control
variables. Construction of communication patterns is addressed via
periodic sequences chosen using geometric and graph theoretic tools.
The governing equations for the resulting virtual structure then
describe an underactuated mechanical system with both discrete time
actuation and oscillatory dynamics. Analysis and construction of
feedback control for such systems is addressed by developing a new
notion of averaging and state feedback.

Research targeted to applications and implementation in underwater
autonomous vehicles provides a captivating venue for education at all
levels. The issues arising in such settings have broad theoretical
implications as well as the appeal of hands-on experience. To
strengthen and broaden interaction between control theory and fields
such as biology and computer science, undergraduate courses in control
theory will be redesigned to make the tools of control theory
material accessible to students with non-traditional engineering
backgrounds. Additional graduate courses will also be developed that
provide not only a rigorous theoretical background in individual
elements of control theory or communications but that also provide
tools for developing interdisciplinary methods and application of
those methods. Closely integrated with the research and educational
components of the project are mentoring and outreach activities based
around the construction of an interactive web site. This component
involves not only undergraduate and graduate students as developers,
but K-12 students and educators as active users and participants in
the research lab. The site will contain scientific information about
the different components of autonomous vehicle design and control as
well as interactive tools for exploring application of control and
communication methodologies to lab vehicles.